MRI: Acquisition of Cluster Computing Facilities for Research and Education at Wesleyan University

This project, establishing a state-of-the-art 128-CPU cluster computing facility, services research programs in theoretical astrophysics, liquid state chemical physics, nanotechnology, quantum chemistry, molecular biophysics, neuroinformatics, and structural bioinformatics, all of which depend on high-end computing. The cluster also impacts ongoing instruction in the university. The instrument serves as a learning tool and the basis of courses and certification program in computational sciences.